Introduction of Electrochemical Instrumentation into the Undergraduate Chemistry Curriculum.

The Chemistry Department is purchasing an eletrochemical analyzer for use in freshman chemistry, instrumental analysis, and physical chemistry courses. Students in freshamn chemistry are using the instrument to measure changes in the reduction potential of metal ions upon complexation. Students in upper level courses are investigating aspects of cyclic voltammetry, anodic and cathodic stripping voltammetry, chronocoulometry, square-wave voltammetry, and differential pulse voltammetry.The instrument is also being used for undergradauate independent research projects in the mechanisms of redox reactions of organic compounds, determinations of stability constants, and determination of trace metals in the environment.The new instrumentation will be made available to senior chemistry and biochemistry majors for use in their independent study research projects. The requested equipment will also be integrated into the college's annual summer program in chemistry which is attended by 35-40 advanced high school students.